Collaborative Research: Atomic Structure Determination of ADPGlucose Pyrophosphorylase

Glycogen and starch serve as major energy storage compounds for nearly all-
living organisms and are an important energy component obtained from
plants. ADP-glucose pyrophosphorylase (ADPGlc Ppase) catalyzes the
conversion of glucose-1-phosphate and ATP to ADP-glucose and
pyrophosphate and is a key regulated step in both bacterial glycogen and
plant starch biosynthesis. ADPGlc Ppase regulation is mediated by the
binding of a number of activators and inhibitors, many of which are key
metabolic intermediates. This research utilizes the ADPGlc Ppase enzyme
from the bacteria Agrobacterium tumefaciens (Ag.t.) that is regulated by fructose-
6-phosphate and pyruvate. This project outlines x-ray crystal structural
studies on Ag.t. ADPGlc Ppase to examine substrate binding, allosteric
effector binding, and the mechanism of activation. Several roadblocks
associated with x-ray crystallography have already been overcome including
crystallization and heavy atom derivitization for phase determination. Once
the three-dimensional structure of one member of the ADPGlc Ppase protein
family is determined homology modeling can be used to construct reasonable
structures of the other proteins in the family. As a major control point for the
production of renewable and biodegradable carbon sources, ADPGlc Ppase
is an attractive enzyme target for protein engineering. Understanding the
regulation of the ADPGlc Ppase enzyme family is necessary for the
bioengineering of the enzyme and could lead to rational protein engineering
of the enzyme to increase starch production